International Conference on Application-Specific Array Processors; Venice, Italy; October 25-27, 1993

Wah This conference, sponsored by the EUROMICRO Association, the IEEE Computer Society, IFIP, AEI, and AICA, focuses on parallel computing, system design methodologies, technology and implementation within the context of application specific computing. Application specific computing is directly related to high performance computing and is a major component in this program. This conference will take place in conjunction with the IEEE International Workshop on Defect and Fault Tolerance in VLSI Systems. This grant supports travel by selected graduate students to permit them to attend the conference.